A State Space Framework for Coordination

This is a one-year regular grant that investigates mathematical model-based methods for coordination in intelligent agent societies. The research addresses how to construct an general model of coordination that is based on a identification of a set of state variables that characterize relevant aspects of agent behavior in an agent society. Coordination is defined as the management of dependencies among activities, following a widely used definition of coordination. The problem of coordination is then the problem of exerting control over these dependencies. The research aims to discover logical orderings of state variables based on dependencies, and thus to develop mathematical models of coordination strategies. Once coordination and control relationships are known, coordination problems can be treated using constraint satisfaction, constraint-propagation, ad optimization approaches. The mathematical models will be further explored and validated through simulation.